CMG Research: Multi-scale Flow and Transport Modeling of Large-vug Cretaceous Carbonates

Some carbonate strata contain vugs or cavities about the size of a few
centimeters. This project unites the expertise of geologists, geo-engineers,
and mathematicians to study experimentally and computationally the flow and
transport of solutes in vuggy rocks over distances of 0.1 to 100 meters.
Experimental studies of the Pipe Creek Reef outcrop in Central Texas will be
made: (1) in the laboratory on samples at the sub 10-20 cm scale to determine
rock and vug properties and micro-scale tracer transport characteristics; (2)
in the field over 1-10 m scales to determine effective permeabilities and
tracer injection response; and (3) in the field using ground penetrating radar
to map the large scale geology over 1-100 m scales. The data will be used to
construct a micro-scale model of the transport process at the detailed sub-cm
scale and a macro-scale model to represent the system, including its
topological vug interconnectivity, time-scales, and macro-dispersion on scales
of at least 1-100 m. Efficient and accurate computational implementation will
allow testing and verification. Statistical analysis will quantify uncertainty
in the data for use at full field scales. The project is expected to result in
substantially improved modeling of flow and transport in vuggy media over the
macro-scale, with a solid empirical basis for the selection of the effective
parameters in the macro-scale model, and the handling of parameter uncertainty.
It should illuminate modeling of similar porous media, such as karsts and
fractured systems, and, more generally, related multi-scale systems. The
project will impact three Ph.D. students and enhance two outreaches to the
industrial community, the the Reservoir Characterization Research Laboratory
(RCRL) and the Center for Subsurface Modeling (CSM). Finally, since carbonate
rocks comprise many of the world's aquifers and oil reservoirs, society will
benefit as progress allows more effective protection of groundwater supplies
and production of petroleum.

Some carbonate rock strata contain cavities, called vugs, about the size of a
few centimeters. Fluid can flow much more easily in these vugs than within the
rock itself (i.e., between the rock grains). The transport of chemical
species, such as groundwater contaminants, is strongly influenced by the nature
of these vugs. Within an inter-connected vug path, the contaminant can flow
quite rapidly, but it must slow considerably when it re-enters the rock.
However, little is currently known about how fluid flows in such vuggy rocks
over long distances. This project unites the expertise of geologists,
geo-engineers, and mathematicians to address the problem. Experimental studies
will be made to determine the behavior of fluid flow in small vugs over 10-20
centimeters, and within vug channels up to 10 meters long. Ground penetrating
radar will be used to map the large scale geology over 1-100 meter scales.
Using this data, two models, or computer simulation codes, will be constructed.
The first model will describe the flow at the detailed sub-cm scale. The
second will describe the flow only in an average sense, so that it can be used
meaningfully at the field scale of an entire aquifer or petroleum reservoir.
Moreover, statistical analysis will allow for the quantification of uncertainty
in the data. The project is expected to result in substantially improved
modeling of flow and transport in vuggy media over large scales. The project
will impact the education of three Ph.D. students, who will be trained in an
interdisciplinary environment. Since carbonate rocks comprise many of the
world's aquifers and oil reservoirs, society will benefit indirectly.
Subsurface simulation is an important engineering tool. Groundwater
contamination can be remediated or prevented through the engineering design of
valid, predictable, and cost effective remediation or containment strategies.
Engineering analysis based on simulation studies is also used to quantify,
manage, and reduce risks related to oil reservoir management.